Boosting Web Server Performance Using DRALIC----Distributed RAID and Location Independence Caching

The objective of this project is to investigate the design, implementation, and performance evaluation of a new architecture for storage area networks. The architecture under investigation, Distributed RAID and Locatin Independent Caching (DRALIC) will implement distributed RAID and global caching at the device level, using the embedded controllers in storage devices to perform complex functions. A preliminary study has shown that this architecture has significant performance and reliability advantages in web server applications. The present project includes detailed simulation studies and a proof-of-concept implementation on a network of general-purpose computers.